REU Site: Basic and Environmental Soil Science Training (BESST)

Soils play a fundamental role in myriad global processes. The need to understand the flow of elements, energy, and water through soils is immense and widely accepted across the geosciences community. Yet, the number of scientists trained with specific soils expertise is rapidly declining. The BESST REU Site utilizes a diverse, multi-disciplinary team of scientists to deliver individualized student research experiences in state-of-the art soil science topics, synergized through unifying themes and team training opportunities. Specific objectives are to: i) recruit outstanding students without extensive previous experience in soil science, with an emphasis on those from under-represented groups; ii) train these students by providing a substantive research experience and exposure to broad opportunities in basic and environmental soil science; and iii) develop a pool of future professionals empowered to advance understanding of soils in the geoscience community. Activities are supported by a university with well-developed infrastructure for undergraduate student research, and hosted by a department with a long-standing tradition of international excellence. Student recruitment is pursued through departmental and university collaboration with undergraduate-serving institutions, HBCUs, and national undergraduate research organizations. The program is assessed by external experts to ensure that it is rigorously evaluated and didactic impact maximized. The intellectual merit of the REU Site lies in constructing a new and critically needed pipeline for the next generation of geoscience researchers, equipped to address wide-ranging basic and environmental research problems in soils. Broader impacts are derived from training a diverse group of students to engage in addressing important societal and ecological issues throughout their careers. The REU site seeks to develop a new paradigm for soil science, extending student recruitment and training beyond traditional foundations in agriculture, and transforming soil science into an integral part of the geoscience research community. Student research opportunities highlight relationships between human activities and terrestrial environments, which are central topics in modern soil science that are broadly applicable to many other sub-disciplines of the Earth and environmental sciences.